Circadian Mechanism Controlling Rhythmic Release of Sperm from the Insect Testis.

The increasing resistance of pest insects to convenional insecticides and public concern about environmental contamination mandate the search for effective and safe pest control methods. One hope for the future depends on designing new selective methods of insect control by exploration and exploitation of those biochemical and physiological processes which are unique to insects. In an effort toward this goal Dr. Giebultowicz is studying physiological processes which, when disrupted, cause sterility in male moths. She has discovered and investigated the rhythms of sperm release from the testis and rhythmic secretory activity in the reproductive tract of the gypsy moth. These rhythms are necessary for post- testicular sperm maturation and their disruption results in sterile insect males. Timing of sperm release is controlled by a biological "clock" located in the testis and that rhythmic sperm release persists in testis cultured in vitro. This finding provide a unique opportunity to identify and study molecular correlates of the rythms associated with sperm maturation. Proteins involved in the circadian rhythm of sperm release will be characterize by electrophoretic protein separation, generation of antisera and subsequent investigation of the role of specific proteins in the rhythmic sperm release. Separation and purification of proteins would provide a first step toward resolving molecular basis for biological clock controlling rhythmic release of sperm in insects. Partial sequencing of selected proteins and synthesis of specific peptides might lead to the isolation and identification of genes involved in the mechanism controlling sperm release. In future, she plans to clone such genes and to attempt introducing them into insects using pest-specific baculoviruses which are harmless to other living organisms. In this way sperm release could be disrupted and pest moths in the field would become sterile.//